Economic Natural Selection

This project investigates the evolution of optimizing behavior in a class of financial asset markets. The sources of evolution are "economic natural selection" in the marketplace and adaptation by individual investors. Selection dynamics are a consequence of wealth flows between investors, while adaptation arises from learning and search by individual investors. Unlike much of the literature on evolution in markets, this project studies individuals' behavior in financial asset markets rather than the behavior of firms. In addition to findings on the evolution of rationality (i.e., markets do not always select the traders who are most nearly optimizers or who have the most correct information), the preliminary investigations have discovered a great deal of regularity in the market process. The investigators exploit this regularity to characterize the long run behavior of asset prices in financial markets and to explore the effects of learning, entry and exit, search, and other sources of economic innovation. This is a very important line of research. The assumption that individuals behave as if they were rational (near optimizing) or that firms maximize profits is based on the following natural selection argument. Market forces punish non-optimizing traders and poorly informed traders by redistributing to the more nearly optimizing, better informed and better guessing traders. In the long run, these traders come to dominate the market. Models of market rationality are widely used in financial economics. Preliminary work by these investigators suggests that the natural selection process might not converge on a rational expectations equilibrium, that there are significant regularities in markets even when the market is not efficient in the long run, and these regularities can provide a richer and more accurate conceptual framework for studying the dynamics of financial markets.